Hardware Acquisition For Experimental Studies Of Multiple Scattering Of Elastic Waves In Geophysics

0111804
Scales

This grant provides support for the costs of acquiring laboratory equipment to study elastic wave multiple scattering and resonance ultrasound spectroscopy.
The equipment includes a vibration-isolated optical bench, a 16-bit high-speed digital oscilloscope board, an arbitrary waveform generation board, lock-in amplifiers and a low-noise preamplifier.
This new equipment will allow us to make a variety of measurements aimed at understanding and exploiting multiple-scattering of elastic waves and resonance ultrasound, in order to characterize the properties of geologic materials. The new equipment will complement our existing facilities for laser ultrasonics, in particular a scanning laser-Doppler vibrometer. The equipment will be housed in the Green Center at the Colorado School of Mines and jointly utilized by the Physical Acoustics Laboratory and the Rock Properties Laboratory. It will also be available for use in undergraduate and graduate teaching and research within the Geophysics Department at CSM.
***